Dissertation Research: Settlement Organization of a Major Pre-Columbian Polity: Archaeological Survey at Cotzumalguapa, Guatemala

Demarest Under the direction of Dr. Arthur Demarest, Mr. Oswaldo Chinchillia will collect data for his doctoral dissertation. Building on previous work he will conduct a settlement survey in the piedmont area of the Pacific coast of Guatemala. This region is well known for the classic period (500-1000 AD) sites ascribed to the Cotzumalguapa culture and for the elaborate sculptures and writing system associated with it. Although attention has been drawn to this area since the nineteenth century, current knowledge is restricted to chronology, architecture and sculpture. Little effort has been devoted to understanding social and political organization. Mr. Chinchillia will conduct a systematic regional survey in the immediate environs of the three largest known sites. He will locate and record data from smaller centers, map their position and qize, and based on the resultant distributions reconstruct both settlement and social systems. He will also conduct limited excavations in order to compare surface and subsurface materials. Through this process, he will determine how accurately suface distributions mirror buried materials and what potential bias surface data might contain. Middle America is famous for the complex societies which developed in an often inhospitable tropical environment. Archaeologists wish to understand the processes which led to the emergence and development of these complex entities and which ultimately resulted in their downfall. Very little systematic work has been done in the piedmont of Guatemala even though the complex and elaborate nature of archaeological remains indicates that such attention is merited. Mr. Chinchillia's research will shed new light on the rise of complex society. It will provide data of interest to many archaeologists and assist in the training of a promising young scientist.